Neutron Stars as Probes for the Structure of Dense Nuclear Matter

Neutron Stars as Probes for the Structure of Dense Nuclear Matter

Fridolin Weber, San Diego State University, San Diego, California

Neutron stars contain matter in one of the densest forms found in the
Universe (a thimble full of such matter would have a mass of one
billion tons) which, together with the unprecedented progress in
observational astronomy, makes such stars superb astrophysical
laboratories for a broad range of fascinating physical studies. These
include the exploration of nuclear processes in an environment
extremely rich of electrons and neutrons, and the formation of new
states of matter in the cores of such objects, like a plasma of quarks
and gluons which is being sought at the most powerful terrestrial
particle colliders. This NSF supported research project aims at
exploring such processes from observed neutron star data. It is
divided into two major activities.

The first activity deals with X-ray neutron stars accreting matter
from companions. Such neutron stars accrete typically many millions
of tons of matter per second, which hit the stellar surface at a
significant fraction of the speed of light. This leads to
thermonuclear reactions on the stellar surface whose ashes gravitate
gradually inward, causing significant changes (e.g. nuclear fusion
reactions) in the star's crust. The major goal of this activity is to
explore the impact of these thermonuclear reactions on the thermal
evolution of accreting neutron stars.

The second activity concerns our understanding of the fundamental
physics realized in the ultra-dense core of neutron stars, where
neutrons and protons might be broken up into their quark constituents,
creating a new state of matter known as quark matter. If quark matter
exists in the cores of neutron stars, it will be a color
superconductor whose condensation pattern is very complex. It has also
been theorized that neutron stars could in fact be quark stars,
objects made entirely of quark matter. In the framework of this
activity, research on potential astrophysical signatures signaling the
existence of quark matter in "neutron" stars will be carried out.

These research activities are crucial to obtain the full physics
potential of the investments that are made in astrophysical detectors,
at Jefferson Lab, the Relativistic Heavy Ion Collider (RHIC), as well
as new investments that are recommended for the Rare Isotope
Accelerator (RIA).

The researchers and students involved in this project will develop
multi-media lectures on how stars work and present them to middle
and high school students and teachers in the San Diego area.